Control Systems and Robotics Laboratory

The Electrical Engineering Department at West Virginia Institute of Technology is initiating the development of a comprehensive laboratory to provide "hands-on" training in control and robotics. There are five workstations. The main components of these workstations are: a robot arm, a servo mechanism, an IBM 486 computer and Computer-Aided Control Engineering. The lab is flexible enough to allow students to investigate classical and modern control techniques for a wide variety of applications and use of neural networks and fuzzy logic in control.